Research on the Group Structure of the Einstein Equations Solution Manifold

Because solutions of ever-greater complexity of the vacuum and electrovac Einstein equations, generated using procedures based upon general formalisms of Belinskii- Zakharov, Hoenselaers-Kinnersley-Xanthopoulos, Alekseev, Sibgatullin, and Hauser-Ernst, are rarely checked by direct substitution into the Einstein equations, it has become especially important to validate the theoretical basis for and to identify any limitations of such formalisms. Dr. Ernst and Dr. Hauser will clarify the logical foundations of solution-generating machinery by establishing the mathematical relationships among the various formalisms, and by attempting to provide, within an integrated framework, clear statements and bona-fide proofs of all the tacit or as yet unproven assumptions upon which the diverse formalisms must ultimately be based. This includes, but is not limited to, a careful specification of domains of functions and differentiability requirements, proofs of equivalence of various integral equations and associated Riemann-Hilbert problems, proofs of existence of solutions of these equations, and proofs that these solutions satisfy the Einstein equations.